An Experimental/Mathematical Determination of an Effective Heat Transfer Coefficient for Continuously Cast Metal During the Cooling Process

9312734 Bigzadeh The main objective of the project is to obtain an effective heat transfer coefficient on a metal strand in the secondary cooling zone during the continuous casting process. Previous research indicates that many cooling processes in this zone have a pronounced effect on the quality of the cast metal. Two different experimental setups will be designed and constructed to satisfy the special requirements of the two phases of the experimental study. During the experiment, spray water and spray (air and water) velocities will be measured. This will be achieved by the three- dimensional Laser Doppler Anemometer and Particle Dynamic Analyzer system (3-D LDA/PDA). Thermocouples with an associated HP data acquisition system will be applied to measure the temperature distribution. A high resolution photo camera will be used to obtain information during the droplet impinging process. X-ray diffraction and Auger experiments will be used in order to determine the composition and the structure of the surface scale. A suitable method of curve fitting will be used to develop the correlation equation for determining the heat transfer coefficient for the metal strand in the secondary cooling zone during the continuous casting process. Improved understanding of the transfer of heat to the castings may allow higher quality continuously cost metals to be produced, reducing the cost and improving the performance of metal sheet stock.